Mapping Design: Cultural Cognitive Models in Design Process

The purpose of this research project is to identify how findings in Science and Technology Studies might be brought to bear on the processes of design. This necessitates developing a better conceptual and empirical understanding of the relationship between design and social life from the perspective of designers. Recent work on cognitive-cultural models will be used as a theoretical framework for bridging the gap between sociotechnical processes and `design thinking.` Developing a methodology will be the focus of this year's project.